SBIR Phase I: A Novel Three-Dimensional Ear Biometric Technique

This Small Business Innovation Phase I research project seeks to investigate the feasibilty of a novel 3D ear-shape recogniton system for enhancing the performance of video-based human identification (ID) systems in protecting highly secured facilities. Human ears are highly complex 3D structures that offer a rich set of features that can be used as effective biometric properties for video-based surveillance and identification of human subjects.
Genex Technologies' proffered "3D Ear ID" technique would significantly advance the current identification and surveillance capability and greatly enhance the protection of U.S. forces/civilians and facilities, at home and abroad.